CISE Research Instrumentation

VLSI design and test equipment will be provided for researchers at the University of Southern California for research in the Department of Electrical Engineering. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the study of communication signal processing algorithm implementations on VLSI chips.